U.S.- China Coperative Research: Numerical Methods and their Application to Computer Simulation of Flows in Underground Reservoirs

9901498
Chen

This is a three year cooperative research project proposed by Dr. Zhangxin Chen, Southern Methodist University, Dr. Richard Ewing, Texas A and M University and Professor Zhong-Ci Shi of the Chinese Academy of Sciences. The goal of this project is to develop numerical methods for differential equations and their application to modeling and computer simulation of multiphase fluid flows in groundwater and petroleum reservoirs. The efficient solution of nonlinear coupled systems of partial differential equations is important to many fields of science and engineering. This project may provide efficient ways to obtain solutions to these nonlinear systems. This project is jointly supported by the Chinese Academy of Science and the National Science Foundation